2010 Frontiers of Engineering Symposia (U.S., German-American, and EU-US)

This award partially supports a series of three national and international Frontiers of Engineering (FOE) Symposia by the National Academy of Engineering (NAE): German-American Frontiers of Engineering (April 23-25 in Knoxville, Tennessee), U.S. Frontiers of Engineering (September 23-25 in Armonk, New York), and EU-US Frontiers of Engineering (late fall 2010, location TBD). Each symposium focuses on four topical areas. Topics for 2010 include cloud computing, biosensing and bioactuation, engineering and music, autonomous space systems, rapid vaccine manufacturing, novel concepts for automobiles, lasers, modern power system grid control, synthetic biology, mobility and transport, technologies for safety and security, and energy/environment. Between 60 and 100 outstanding, early-career scientists and engineers participate in each symposium. Sessions consist of presentations by speakers on leading edge research, emerging technologies, and opportunities for collaboration across science and engineering fields. The symposia foster interdisciplinary and international collaborations and serve as a reference point for many of the emerging frontiers in research and innovation in the U.S. Presentations from the U.S. FOE seminar will be posted on the NAE FOE web site.